Interaction between Earthquakes, Stress, Temperature, and Fluid Flow in the Seismogenic Zone

The PI will develop a physical-thermal-fluid model of the seismogenic zone that not only includes constraints from seismology but also from fluid flow that can modify both the stress and thermal state. He will explore a spectrum of models for fluid expulsion from the subducted crusts and its effect on the temperature regime. The objectives of the work are in accord with the overall scientific objectives of the Seismogenic Zone (SEIZE) initiative of the MARGINS Program that seeks to understand the temperature structure and the flow regimes in the seismogenic zones.